GK12 Track 2 PRISM II

This proposal describes a Track 2 project that builds on 15 years of experience at establishing a sustainable community partnership that enhances Emory's research, teaching and service missions. The primary goal of PRISM II is to fully institutionalize the partnership established by PRISM I. Specifically, the objectives are to engage teachers and graduate fellows (GF) in learning pedagogies and reflective practice, enhance skills in teamwork and research practices, improve skills in communication with the broader public, improve content in science and mathematics, and increase the number of role models available for students and teachers. To accomplish these goals and objectives, Emory will partner with Clark-Atlanta University, Atlanta Public Schools, DeKalb County School System, City Schools of Decatur, and Fulton County Schools. The project will target ten teacher-GF teams per year with the potential to impact hundreds of students.